Positive and nonnegative curvature on bundles

Proposal DMS-0303326
P.I.: Kristopher Tapp (Bryn Mawr College)

Title: Positive and nonnegative curvature on bundles

ABSTRACT:

In recent research, the PI developed tools for studying the following two
general problems in Riemannian geometry: (1) For which vector bundles does
the total space admit a complete Riemannian metric with nonnegative sectional
curvature? (2) For which sphere bundles does the total space admit a
Riemannian metric with positive curvature? The PI plans to use these tools
to find new examples, obstructions, and rigidity theorems. In particular,
the PI plans to construct metrics of nonnegative curvature on holomorphic
vector bundles over complex projective space, and determine whether Einstein-
Hermitian connections can appear as the connections in the normal bundles of
their souls. Also, the PI intends to study nonnegatively curved metrics on
trivial vector bundles over spheres. This problem is related to the Hopf
conjecture, or more specifically to the question: how large is the family of
nonnegatively curved metrics on the product of two spheres? The PI will work
with undergraduate students studying the metrics on such products obtained by
re-scaling the product metric by a compact Lie group which acts by
isometries. Finally, the PI proposes to find obstructions to metrics of
nonnegative curvature on vector bundles over spheres with prescribed soul
metrics.

The question of which manifolds can have nonnegative curvature is central to
Riemannian geometry. Nonnegative curvature is a visually natural restriction
on the way in which an object curves about in space. All known examples come
from compact Lie groups with bi-invariant metrics, which are indispensable
tools in diverse fields of mathematics, physics, cosmology, and other
disciplines in which simplification is achieved through symmetry. The search
for new examples of manifolds with nonnegative (or positive) curvature has a
long history, yet very few constructions are known. Since his tools
represent a construction which is substantially different form known methods,
the PI believes they deserve further study.